Parallel Verification Systems for Highly-Complex Communications Protocols

The objective of this project is to develop methods for the verification of highly complex communications protocol required for current and future network engineering problems. The problem of protocol verification is computationally complex. This research focuses on ways to employ scalable parallelism to provide the necessary computational resources. Initial research has been conducted on parallel protocol verification algorithms based on the relational algebra. The project will expand on the earlier work by applying two level parallelism. New algorithms will be developed and implemented on an Intel iPSC/2 hypercube. This project will also investigate the specification and parallel verification of protocols written in Communicating Sequential Processes (CSP). A prototype system will be developed.